Purchase of a Fluorescence-Activated Cell Sorter

This proposal is for the purchase of a fluorescence- activated cell sorter to replace one purchased in 1983 at the inception of the Center for Fluorescence Research in Biomedical Sciences at Carnegie Mellon University. The PI and co-PI are leaders in the flow cytometry community and the current FACS has been used in 38 research publications in cell biology in the 9 years since its installation. No other instrument exists at CMU. Limitations in its capabilities compared to newer instruments and difficulties with repairing and maintaining it justify replacement. The group of major and minor users receives over $3,290,000 in direct cost research support per year from federal and other agencies, including over $690,000 per year from NSF. The proposal replacement instrument will be used for research in a number of areas of cell, molecular and developmental biology, including membrane traffic, somatic cell genetics, fluorescent probe development, mitochondria physiology and cell differentiation and will be an integral part of the recently-established NSF Science and Technology Research Center in Light Microscopy Imaging and Biotechnology at Carnegie Mellon University